Communication and Integration in Nanomaterials

The PI is organizing an interdisciplinary workshop to provide a forum for discussion of the latest advances in nanomaterials to be held in Romania during the week of Sept. 30, 2002. The challenges and issues with the science and application of nanotechnology will be identified and discussed along with identification of emerging areas requiring research and analysis. The specific intersection between areas is to be covered, such as quantum mechanics and biology, nanoparticles in polymers, electronics and biology, and their interactions.